CAREER: The Co-Evolve Ecosystem: Collaborative and Evolving Systems for Embodied Intelligence at the Edge

This project builds software that helps groups of smart machines, such as robots, drones, and wearable assistants, work together like a well-organized team. Today, each machine may have different parts, different skills, and different owner needs, so teamwork can break down. The project gives these machines ways to learn from one another without sharing private information, choose which machine should handle each job, and improve through experience. The goal is to make future intelligent machines safer, faster, and more helpful in places such as warehouses, homes, hospitals, farms, and smart cities.

The research is organized into three connected thrusts. The first thrust develops foundations for collaborative intelligence through resource aware federated learning, principled aggregation of heterogeneous parameter efficient updates, cross architecture knowledge fusion, and privacy preserving alignment with diverse human preferences. The second thrust builds runtime systems for deployed embodied intelligence, including unified multimodal inference orchestration, distributed serving for multi skill agents, and decentralized service level objective driven multi agent resource management. The third thrust enables lifelong ecosystem evolution through dynamic skill composition, privacy preserving adaptation of cloud hosted black box models, and dual loop co optimization of agent structure and real time execution. Together, these tasks establish new algorithms, system abstractions, and protocols for heterogeneous, adaptive, and resource aware intelligent ecosystems.

The project will broaden access to embodied artificial intelligence by releasing open-source software that enables researchers, students, and practitioners to study collaborative intelligent agents on edge devices. The resulting systems can support applications in autonomous logistics, smart infrastructure, assistive robotics, manufacturing, healthcare, and disaster response. The project also advances responsible artificial intelligence by emphasizing privacy preserving adaptation, decentralized decision making, and user aligned behavior. Education and outreach activities will connect the research to a new interdisciplinary course, graduate and undergraduate mentoring, hands on training for students outside computer science and electrical and computer engineering, and workshops for students from kindergarten through grade twelve. These activities will help prepare a diverse new generation of researchers who can design intelligent systems that are efficient, trustworthy, and socially useful.